Incident Reviews in High-Hazard Production Systems: A Proposal for a Multidisciplinary Research Workshop

This project supports a workshop of an interdisciplinary group of scholars now studying organizational processes in high-hazard productions systems and a collaborating group of industry experts. The workshop is structured to help participants identify significant research questions, fertilize nascent research directions, catalyze cross- disciplinary and academic-industry collaborations, and contribute to a supportive infrastructure for this potential community of scholars and practitioners. Participants will write positions papers in preparation for the workshop and prepare reaction papers critically examining analyses of incidents during the workshop. The organizers will prepare a workshop summary that highlights suggestions for high- hazard organizations and organization theory, and the nature of communication among academics and industry participants.